Symposium on Computer-Enhanced Analytical Spectroscopy, June 6-8, 1990, Snowbird, Utah

This grant to support the Symposium "Computer-Enhanced Analytical Spectroscopy" is in the general area of analytical and surface chemistry and in the subfield of computer-based research. This request would provide five beginning untenured Assistant Professors and faculty from undergraduate institutions the opportunity to attend and participate in a Symposium on Computer-Enhanced Analytical Spectroscopy, June 6-8, 1990, in Snowbird, Utah. The goal of this symposium is to provide a direct interface between analytical spectroscopy and chemometrics. The aim is to create excitement about contemporary methods at this interface with the result that these faculty will return to their institutions and be more effective in conveying this enthusiasm to students who may be swayed towards a career in science. Selection criteria will include the above point, the quality of the applicant's teaching and research background, and the possible impact on improving participation of women and minorities in chemistry.